Mathematical Sciences: Mathematical Methods of ComputationalPhysics

This is a continuing research program in the areas of computational fluid dynamics, mathematical physics, and partial differential equations. Mathematical methods will be developed to treat large scale computational problems that arise in aerodynamics and in applied physics. Questions of existence and uniqueness will be investigated. Analogous questions in the theory of univalent functions will be analyzed. Among the application areas for the mathematical results are transonic flows (particularly the tip vortices that form on the rotor of a helicopter) and transpoprt phenomena in plasma physics (an explanation for the anomalous loss of electrons).